Spring Topology and Dynamical Systems Conference March 2008, Milwaukee, WI

The Department of Mathematical Sciences of the University of Wisconsin- Milwaukee will host the Forty-second Annual Spring Topology and Dynamical Systems Conference from March 13 through 15, 2008.

The Spring Topology and Dynamical Systems Conferences (STDC) have been among the most successful annual topological conferences in the nation, attracting an international audience. Over the years the STDC has broadened its scope, encompassing most areas of topology and topological approaches to dynamical systems. The intellectual merit of the proposed activity lies in this broad and deep interaction among adjacent research areas. It is expected that the conference will attract approximately 200 participants, nationally and internationally.